A BSCS Implementation and Dissemination Project for High School Science Education

9911615
BYBEE

BSCS will form a dissemination and professional development center that will raise national awareness of 21 high school science curricula developed with NSF support, and provide professional development to teams from high schools and/or school districts in selecting appropriate curricula and implementing the adoption process. In addition, the project will implement a pilot project where current earth science and physical science teachers who are teaching out of field can receive training in both the content and the skills needed for inquiry-based science instruction. An analysis will be conducted to determine how the pilot model can be transferable to other sites.